Culturally Responsive Education and Teaching Empowerment in Mathematics in Hawaii (CREATE-Math-HI)

This Noyce Track 1 project aims to serve the national need of preparing highly effective STEM teacher leaders who are responsive to all student populations. Additionally, this project will support 12 math and science Noyce Scholars by providing tuition scholarships, internships, and participation in focused activities designed to enhance academic success and professional development. The proposed project components will enable high-achieving prospective teachers to become secondary STEM teachers with extensive expertise in active learning and technology-infused instruction.

This project at the University of Hawaiʻi West Oʻahu (UHWO) includes partnerships with the University of Hawaiʻi at Mānoa (UHM) and Kaimuki-McKinley-Roosevelt (KMR) complex area schools within the Hawaiʻi Department of Education. Project goals include recruiting, preparing, and certifying 12 new STEM teacher leaders to be produced over a five-year project period. These scholars will be supported as undergraduate students pursuing a Bachelor of Science in Natural Sciences at UHWO and continuing to post-baccalaureate secondary teaching certification at UHM. This project will be iteratively evaluated. Evaluation of the project will be guided by the following evaluation questions: (a) To what extent does the project successfully recruit highly effective secondary educators who are responsive to all students? And (b) How do the project’s activities support the development of teacher candidates’ content knowledge, pedagogical effectiveness, and readiness to teach in high-need Local Educational Agencies (LEAs)? The results of this project will be disseminated to help enhance the field. This Track 1: Scholarships and Stipends project is supported through the Robert Noyce Teacher Scholarship Program (Noyce). The Noyce program supports talented STEM undergraduate majors and professionals to become effective K-12 STEM teachers and experienced, exemplary K-12 teachers to become STEM master teachers in high-need school districts. It also supports research on the effectiveness and retention of K-12 STEM teachers in high-need school districts.